RI: Adaptive Motion Coordination of Multiple Unmanned Aerial Vehicles for the Monitoring of Aerosol-Dust-Cloud-Radiation Interactions

The main objective of this project is the development of scalable,
systematic approaches to the synthesis of adaptive sampling strategies
by mobile sensor networks. In particular, the research challenges have
been identified with a specific application in mind: the study of
atmospheric aerosol-dust-cloud-radiation interactions, and how
aerosols and dust affect cloud microphysics and, more generally,
climate dynamics. The successful completion of the project requires
progress on the development of distributed data fusion algorithms that
help estimate spatio-temporal processes and coordination algorithms
that exploit these environmental filters. The resulting motion plans
will be adapted for the sampling of aerosols and dust on clouds across
areas of the Pacific Ocean.

The novel conceptual tools developed in the framework of this project
will allow the further development of mobile robotic networks with
capabilities that are well beyond those offered by the current
technology. Algorithms and motion plans will be adapted and tested in
a multi-UAV system specially developed to monitor atmospheric
processes. The possibility of having a network of mobile robotic
vehicles collecting in-situ data in real time will greatly extend our
abilities for remote measurement and actuation. In particular, the
dynamic adaptive gathering of atmospheric data by groups of UAVs will
provide a much needed insight into how human activity affects climate
change.